Isolation and Characterization of Spore-Forming Bacteria From Salt Marshes; a Study of Prodaryotic Adaptation to SaltMarsh Conditions.

Title: Isolation and Characterization of Spore-Forming Bacteria From Salt Marshes; A Study of Prodaryotic Adaptation to Salt Marsh Conditions This is a Minority Research Initiation (MRI) planning grant to study the sporulation and germination of bacteria. The investigator will use the B. subtilis strain because it is easily cultivated and offers opportunities for biochemical and genetic analysis. In addition, the study will allow comparisons of these processes in other species. The planning period will provide time and support for the investigator to grow and characterize several bacterial strains and establish contacts with established laboratories working in this area.